SBIR Phase I: Immunoconjugate Luminescent Sensors Based on CdTe/CdS Nanoparticles

This Small Business Innovation Research (SBIR) Phase I project seeks to design a nanoparticle-monoclonal antibody conjugate that is capable of detecting select biological warfare agents including Brucella and Francisella. This novel approach to detection is effective, sensitive, selective, inexpensive and truly portable. The system uses an innovative detection method involving two wavelengths of fluorescence, which further increases selectivity and sensitivity. The sensor mechanism uses a thin film of conjugate that can be exploited in a number of ways for detection of other pathogens of relevance to both military and non-military sectors.

The commercial applications of the technology to be developed in this project will be in the area of counter-terrorism and in medical, food, agricultural and related fields where pathogen contamination must be detected.